NSF Young Investigator/Analytical Chemical Approaches to the Elucidation of the Structure of Biomolecules

This National Science Foundation Young Investigator project is in the general area of analytical and surface chemistry and in the subfield of mass spectrometry. During the five-year tenure of this award, Professor Williams and his students will pursue the development of novel instrumental and computational techniques in mass spectrometry, chromatography, and laser spectroscopy for probing structure and function of large biomolecules; applications of new dissociation methods for ionization in tandem mass spectrometry; and novel sample introduction techniques for interfacing liquid chromatographic methods with mass spectrometry. %%% The successful attainment of the goals of this project should enable the broad advancement of analytical mass spectrometry, especially as applied to the characterization of large biomolecules, and give rise to substantive improvements in hybrid mass spectrometric/liquid chromatographic methods. Additionally, this NSF Young Investigator Award should significantly assist Professor Williams in his establishing a vital and productive program of research and research training.